The Dirac Centennial Symposium; Florida State University; Tallahassee, FL; December 6-7, 2002

The proposal is a request for partial support for a two-day conference to recognize the scientific achievements of P.A.M. Dirac. The conference will take place in Tallahassee on December 6-7, 2002. There will be lectures on various frontier topics in physics research, many of which were strongly influenced by Dirac's work. The conference will be of great educational value to young scientists and the proceedings will be published by World Scientific. The funds will be used to cover the costs of registration and travel for attending students working in experimental or theoretical particle physics.